Biobehavioral Consequences of Placentophagia

Dr. Kristal's research is directed towards understanding the physiological, particularly opioid-mediated, processes involved in mammalian birth and postpartum behavior. Perhaps one of the most enigmatic components of the mammalian birth process has been the ingestion of the afterbirth by the mother. This placentophagia is present in virtually all nonhuman, nonaquatic, mammalian species. Recently, with NSF support, Dr. Kristal found that ingestion of amniotic fluid or placenta by rats experiencing opioid-mediated analgesia significantly elevates that analgesia. These data indicate that the placenta and amniotic fluid contain a substance(s) that enhances opioid-mediated analgesia but does not by itself produce analgesia. The importance of the existence of such a factor, referred to as Placental Opioid-Enhancing Factor (POEF), is that during labor and delivery, pregnancy- mediated analgesia can be maximized without so massive a release of endogenous opioids. This is very important since too high a level of opioids during and immediately after birth can interfere with maternal behavior. Dr. Kristal is continuing to characterize the effects of the analgesic enhancing effects of POEF during parturition and on maternal behavior. The findings will enhance our knowledge of the physiological mechanisms of birth and postpartum behavior. Moreover, the research points the way toward a new class of non-narcotic analgesics and sheds light on fundamental processes involved in pain and the body's reaction to it.